Diffeomorphism groups in dimensions 2 and 3

The proposal is devoted to diffeomorphisms groups of manifolds of the
dimension 2 and 3. In the dimension 2 the main problem is to understand the
algebraic structure of the groups of isotopy classes of such
diffeomorphisms, known as mapping class groups of surfaces or Teichmueller
modular groups. The proposal addresses some of the central problems about
the mapping class groups: understanding the structure of the Torelli groups,
braid groups of surfaces, and mapping class groups themselves. The problems
addressed in the proposal are
the ones which either hold the key for the fundamental properties
of the groups in question (like the problem of finite presentability of the
Torelli groups) or have connections with other branches of mathematics (like
the problem of understanding the Wajnryb presentations from the point of
view of algebraic K-theory and topological quantum field theory). In the
dimension 3 the key problem is the understanding of the homotopy type of the
diffeomorphisms groups, especially of their connected components. The main
goal here is to relate the few available results in this area to the more
mainstream tools of topology and to extend, on this basis, these results to
other manifolds. A particular goal is to understand the diffeomorphisms
groups for all lens spaces, the simplest 3-manifolds after spheres.

The proposal belongs to the field of low dimensional topology, which
investigates the possible shapes of objects (namely, the so-called
manifolds) in dimension 2 and 3. These shapes continue to be in the focus of
the mathematical research for more than a hundred years. In the last
decades, the theory of 2-dimensional shapes, i.e. surfaces, acquired an
additional significance as a result of a promising physical "theory of
everything ", namely the so-called string theory. In this theory, the
elementary constituents of matter are not point-like particles, but rather
collections of loops ("strings") sweeping a surface during their motion. The
3-dimensional shapes provide the model for the large-scale structure of the
universe. Some previous results of the PI in this direction have already
attracted the attention of physicists working in general relativity. In both
dimensions, 2 and 3, one of the key problem is to understand the possible
symmetries of these shapes. The proposal is devoted to some of the main
aspects of this problem.